Research Schools of Molecular Biology in the US, UK and France, 1935-1970

Dr. Abir-Am is continuing her exploration and comparison of the processes and products of interaction among members of four research schools in molecular biology in the US, UK, and France between 1935 and 1970. The project traces the evolution of each research school as a distinct social and intellectual unit from earlier origins in diverse combinations of disciplines. The project further traces the confluence of these once isolated schools into the new discipline of molecular biology as distinct from both classical biology and biochemistry. The project seeks to compare the research programs of the four research schools, their categories of social membership, their institutional ecology and their opportunities in science policy, both national and international. Dr. Abir-Am combines both historical and sociological methods to explore the interaction among members of a school as well as inter-school contacts. Thus, archival research on the personal and institutional papers of the founders/leaders of each school are supplemented by oral history interviews with members and affiliates. This project will help to clarify the actual operations of research schools as informal arenas for transactions in "currencies" such as creativity, experimental dexterity, credibility, and loyalty. It will also evaluate how schools relate to scientific progress, change and stratification and explain how scientific authority is delegated and legitimized within research schools, by schools within the wider disciplinary domain, and why schools both enable and constrain innovations and careers.